Directions in Asymptotic Convex Geometry

Abstract

Award: DMS-0456590
Principal Investigator: Bo'az B. Klartag

This project explores several challenging directions in the study
of high dimensional convex bodies. The unifying theme of the
project is that high dimensionality, when viewed correctly, may
entail simplicity and order, rather than enormous diversity which
is impossible to control, the so-called ``curse of
dimensionality''. In particular, the PI will address the
fundamental questions regarding distribution of mass in high
dimensions, the typical shape of lower-dimensional sections of a
given convex set, and the interplay between convex-geometric
inequalities and functional inequalities, mostly in the category
of logarithmically concave functions. While classical convexity
focuses on fine properties of bodies or shapes in a fixed
dimension, in the asymptotic theory one views the dimension as
being finite, yet tending to infinity. We aim at bridging
between these two disciplines, both by applying classical tools
to the study of asymptotic questions, and by drawing corollaries
of a classical flavor from asymptotic results. These corollaries
are often of an almost-isometric nature, not only isomorphic.

The study of high dimensional objects is common to various
scientific disciplines, including statistical mechanics, the
theory of machine learning and asymptotic combinatorics, to name
a few. Connections between these areas and asymptotic convex
geometry have already begun to emerge. A better understanding of
the high dimensional phenomena from the geometric viewpoint has
the potential to contribute to the development of the
aforementioned fields and to others